Multi-Media Traffic Queueing Analysis

The research focuses on developing queueing theories of multi-media traffic integration in high speed networks. Multi-media traffic has great diversity of traffic characteristics and service requirements. Because of the lack of analytical tools for the evaluation of multi-media traffic queues, most analytical issues of network control and service management are basically untouched. This research addresses these issues and includes: o characterizing the diversity of multi-media traffic o formulating a multi-dimensional discrete Markov queueing process o developing analytical solution techniques o analyzing and decoupling the interconnected multi-media queues The research also involves finding simple effective tools for analysis of network resource allocation and call management issues. The researcher will first concentrate on developing a simple closed form solution for the approximate average delay of multi-media traffic queues. The tail distribution of the queues will also be characterized in a simple geometric form, to capture the packet loss behavior of finite buffer systems. Finally the researcher will study the feasibility of decomposing the analysis of interconnected multi-media traffic queues.